Flash Flood Forecasting Using Radar Sensing of Rainfall

Th objectives of the project are of using interactive computer graphic techniques for flash flood forecasting to design, implement, test, and demonstrate a system with the following capabilities: linkage with flash flood warning systems; radar and raingauge defined rainfall data; watershed streamflow simulation analysis and hydrologic database management system; and interactive computer graphics system.